Collaborative Research: Effects of Bulk Flow on Monolayer Formation at Gas/Liquid Interfaces

Abstract
CTS-0116947
A. Hirsa, Rensselaer Polytechnic Institute

This proposal is one part of a collaborative research effort between Dr. Hirsa of Rensselaer and Dr. Lopez of Arizona State University (CTS-0116995) on the effects of bulk flow on monolayer formation at gas/liquid interfaces. These two are renewal proposals for the present Grants CTS-9803478 at Rensselaer and CTS-9896259 at ASU.
The present grants focus on the experimental and theoretical/computational study of interfacial transport properties of monolayers of insoluble surfactants on the air/water interface. It is proposed to extend the study to the effect of bulk liquid flow on the self-assembled monolayers along the air/liquid interface. Dr. Hirsa will carry out experimental investigations and Dr. Lopez will perform theoretical/computational studies.